RIA: Condition Monitoring and Control: An Integrated, System-Theoretic Approach

Modern engineering systems often utilize closed-loop control in order to meet requirements on system performance. Condition monitoring systems augmenting the control system are seen to be a means of enhancing reliability, reducing operating cost and extending system lifetime. This research is a general system- theoretic approach which will promote the integrated analysis and design of condition monitoring and control systems. This approach is based on recent results from algebraic systems theory allowing the integrated condition monitoring and controls problem to be imbedded in a general control systems architecture. The capabilities of this approach will be demonstrated as follows: First, this approach will be used to illuminate the extent to which condition monitoring and control system design objectives impact one another. Second, existing control system design tools will be extended to handle the design of integrated condition monitoring and control systems. Third, these tools will be used to obtain analytical results quantifying the design trade-offs involved. Fourth, these tools will be used to address open research questions related to generating condition monitoring system specifications and selecting condition monitoring sensor suites. Finally, it will be shown that the above results can be extended to classes of nonlinear plants.*** //